DNA Rearrangement in Tetrahymena

The junctions of a rearrangement in which DNA sequences which are noncontiguous in the germ line genome are joined during development of the somatic nucleus have been cloned. There is a long inverted repeat near the rearrangement junctions which contains two different 19bp tandemly repeated sequences. The 19mers are also associated with each other at other rearrangement sites, which suggests that they have a functional role in rearrangement. Molecular analysis of the rearrangement junctions and of the products of rearrangements from the macronucleus will be extended in order to determine the full length of the inverted repeat and the nucleotide sequence at junction sites. Cis-acting sequences for DNA rearrangement will be identified by analysis of DNA rearrangement on constructs microinjected into developing macronuclei. Cis-acting sequences will be used in gel-shift assays to identify sites which are specifically bound by proteins during DNA rearrangement. DNA rearrangement is a basic biological process which occurs in a variety of organisms ranging from bacteria to mammals. The goal of the proposed study is to understand the molecular mechanisms involved in developmentally regulated rearrangement in the ciliated protozoan Tetrahymena.***//